Conference: International Indian Statistical Association Annual Conference 2025

This project supports the International Indian Statistical Association (IISA) conference, 2025 - a four-day international conference that will take place at University of Nebraska-Lincoln, Lincoln, Nebraska from June 12 to June 15, 2025. This conference is the official annual meeting of the International Indian Statistical Association (IISA). It provides a platform to exchange ideas and showcase theoretical, methodological, and application of Statistics and Data Science across many scientific domains. The conference features plenary sessions, invited talks, panel discussions and workshops that will provide attendees with invaluable insight into real-world applications of Statistics and Data Science. It will promote education, research, and foster exchange of information and scholarly activities thereby facilitating the emergence of new ideas that will guide future research directions. The conference will also host student paper and poster competitions which will highlight the best research among emerging scholars.

IISA 2025 spans topics from statistical theory to advanced computational methods and application-focused modeling of complex data. It will bring together leading experts and emerging scholars in statistics, biostatistics, probability, data science and offer a forum to discuss recent progress in statistical theory and data science. The conference will provide a valuable opportunity to nurture emerging talents and foster collaboration. It has two hands-on workshops, multiple panel discussions, student paper and poster competitions that will make the experience engaging and impactful, leaving attendees better equipped to thrive in their research journeys. Plenary talks and special invited talks will be given by leading experts in Probability, Statistics, Machine Learning, and Data Science. Junior researchers will have the opportunity to present in invited sessions. Doctoral students will also have the opportunity to give oral presentations on a competitive basis. The official website of IISA 2025 is https://www.intindstat.org/conference2025/index.